International Workshop on Real-Time Systems: Iowa City, Iowa: November 1-3, 1993

9313858 Rus This proposal is for the first of a series of international workshops on algebraic methods and real-time systems in cooperation with the Algebraic Methods and Software Technology(AMAST) conferences. This workshop would be hosted in the United States to foster collaboration in this research area among US, Canadian, and ESPRIT computer scientists. The goals of the workshop are to provide a forum for bringing together practitioners in real-time systems development and theoreticians in algebraic methods, to develop directions for the unification of these fields, and to integrate the software development practices. The results of this workshop are expected to contribute to progress in algebraic methods for real-time and computer controlled systems. Support for this workshop will ensure publication and distribution of the workshop results.